Theory Revision and Related Problems in Learning Theory

Theory revision is the correcting of a given, roughly correct rule,
also known as a concept or theory. This problem arises frequently in
machine learning, for instance, when the initial output of an
expert system is not correct, and when the machine learning
problem is too large or too complex to solve from scratch, and an
approximately correct rule is needed to jump-start the learning
process. There has been considerable ad hoc building of theory
revision systems, but the theory is poorly understood. This research
investigates fundamental mathematical possibilities and limitations
of efficient theory revision. It is hoped that as a result of
this research, theory revision in computational learning theory will
emerge as a general framework for the study of learning situations
where a large amount of initial information is available or
necessary.

In particular, the PIs investigate the following areas: extensions
of their previous work on propositional logic theory revision
with queries, relations to certificate complexity and
attribute-efficient learning, revision problems for predicate logic
representations, and both the learning and revising of categorial
grammars.